Air Sea Interface Symposium

This inter-agency transfer provides support for US graduate students and post-doctoral fellows to attend the Air-Sea Symposium held in Marseilles, France on June 24-30, 1993.